Prediction of Physical Properties of Portland Cement with pHMeasurement

The research is to determine the applicability of pH monitoring to concrete materials manufacture and production. There are two parts, The first part involves pH monitoring of the chemical reaction between water and Portland cement. The objective of this part is to determine the rate of change of the pH and the characteristic data as a new means to classify cement types. The second phase consists of monitoring the change of the pH in concrete that utilizes Portland cement; changes in pH are to be observed when variables are altered individually. This project is one supported under the Creativity Awards for Engineering Students.